Postdoctoral Research Fellowship in Chemistry

Mr. David Charles Eisenberg has been awarded a Postdoctoral Research Fellowship in Chemistry. Mr. Eisenberg will receive his doctoral degree from the University of California at Berkeley under the supervision of Professor Andrew Streitwieser, Jr. He intends to continue his research at the Colorado State University under the sponsorship of Professor Jack R. Norton. Mr. Eisenberg's area of postdoctoral research will be in the area of kinetic studies of hydrogen atom transfer reactions of transition metal hydrides.